Reliable Processing in Distributed Databases

This project investigates algorithms and models for reliable processing in distributed databases. The focus is on problems created by multiple site failures coupled with lost messages, congestion in communication software (that may cause network partition), and consistent recovery of partially replicated database systems. The research will integrate several concepts that are being developed in the context of transaction processing and in particular the commit/termination protocols, and concurrency control theory.